Systematic study of instabilities in non-linear elasticity and martensitic phase transformations

Grabovsky
0707582

The investigator focuses on the understanding and systematic
study of instabilities that can be explained by variational
principles of minimum energy. One such instability is buckling.
Buckling is ubiquitous and very important in engineering and
mechanics. Modern engineering models of buckling, though very
successful, are not related to 3D hyperelasticity, which is
supposed to contain a description of all elastic phenomena,
including buckling. The project initiates a systematic study of
all elastic instabilities, putting buckling in its proper setting
within a general theory. Another interesting and important
instability studied by the project is nucleation of a new phase
in martensitic phase transitions. This study is also related to
rate-independent hysteresis -- an unexpected phenomenon of
history dependence, that does not yet have a universally
agreed-upon explanation. The energy-based model of martensitic
phase transformations was very successful at predicting many
aspects of behavior of shape memory alloys. Hysteresis, however,
could be explained by this model only if one assumes that the
material "gets stuck" in metastable states, modeled as local
energy minima. The project provides a hitherto missing general
tool for identifying metastable states, allowing one to construct
and analyze continuum mechanical models with hysteresis
quantitatively on the basis of the energy-minimization principle.

This project aims to advance our understanding of
nonlinearly elastic materials, such as polymers and rubbers and
materials with shape memory effect. When loads are applied to
these materials, they deform in such a way as to minimize the
total energy stored in the deformed system. When the loads
increase, the nonlinear nature of these materials often manifests
itself in the appearance of new ways to decrease the energy.
When this happens, physicists talk of instabilities. One of the
most common instabilities is buckling, which occurs when the load
on a slender column exceeds a certain critical value. Recent
work of the investigator with Lev Truskinovsky produced a new
understanding of buckling that is used in this project to explore
new methods of computing buckling loads for structures with
complex geometries, such as elastic shells and composite
materials. The systematic study of elastic instabilities that is
performed in this project also sheds some light on
rate-independent hysteresis -- a still poorly understood
phenomenon, whereby a shape memory alloy follows different
deformation paths upon loading and unloading. The project's
contribution towards better understanding of instabilities
permits a quantitative analysis of one of the proposed
explanations for hysteresis, that the material "gets stuck" in
local minima. The project also presents educational and training
opportunities for graduate and undergraduate students. Parts of
this project form the cores of doctoral dissertations of the
investigator's graduate students, while other parts inform the
content of advanced undergraduate classes and independent
studies.